Acquisition of Multi-Imaging System For Use in an Undergraduate Institution

A grant has been awarded to Drs. Kirk, Houde, Darnell, and DebBurman in the
Biology Department at Lake Forest College to acquire a state-of-the-art
multi-imaging system to further biological research and enhance the
undergraduate biology curriculum. Faculty in the biology department
currently utilize molecular techniques to research basic aspects of biology
such as chromosome replication, neural development and degeneration, and the
evolution of sexual behavior. The multi-imaging system will allow the
department to transition from conventional analyses of protein and DNA to a
highly sensitive and quantitative approach utilizing fluorescent and
radioactive signal detection.

Faculty-student collaborative research and teaching at Lake Forest College
relies heavily on the use of modern molecular techniques in order to
visualize a particular class of DNA or protein, separated from all other
molecules of its kind. For example, Dr. Karen Kirk studies the interaction
of specific proteins that bind to telomeres, the ends of chromosomes, in the
cell cycle of the protozoan, Tetrahymena. Dr. Diana Darnell studies the
expression of certain genes affecting neural development in chick, and Dr.
Shubhik DebBurman studies the effects of protein-remodeling factors on human
disease-associated proteins in yeast. Dr. Anne Houde will initiate a new
molecular fingerprinting project in her ongoing studies of the evolution of
sexual behavior and color polymorphism in guppies. The multi-imaging system
is so versatile that it can be used in all these research contexts. Data
will be collected much more efficiently and quantitatively from a variety of
techniques, including agarose and acrylamide gel electrophoresis of nucleic
acids and proteins, polymerase chain reaction (PCR), colony library
screening, and Southern, Northern, and Western blotting. Acquisition of the
multi-imaging system will allow more rapid processing of the data and hence
greater throughput in laboratory procedures and will extend quantification
capabilities to allow faculty and students to employ new experimental
approaches.

Lake Forest College and its Biology Department are committed to an
educational mission that stresses integration of research and teaching and
provides an environment in which students can engage in original, publishable
research. Students majoring in biology at Lake Forest College receive
training in modern research methods through these research programs and
through their course work. The undergraduate biology curriculum emphasizes
student-designed investigation using current technology. This kind of
environment in small colleges has been shown to contribute disproportionately
to the pool of future research scientists. Lake Forest College has a strong
track record in collaborative faculty-student research and will benefit
substantially from the availability of a state-of-the-art multi-imaging
system. Ultimately, the enhancement of the research and training capabilities
of the biology department will help attract larger numbers of talented
students interested in research and research careers. Currently, the
majority of biology majors at Lake Forest College are women and a
significant number are minority students. The college is strongly committed
to recruitment of underrepresented groups and improved research facilities
will help to achieve this goal.